Parallel Scheduling of a Non Procedural Specification

This work is concerned with synthesizing a parallel schedule for a set of equations in a nonprocedural specification. Two forms of parallelism will be exploited. The first is forall parallelism, in which multiple independent loop bodies may be run concurrently. The second is task level parallelism, in which multiple modules (perhaps including forall loops) are active concurrently. Previous research in program synthesis from non procedural specification has been directed toward sequential, dataflow and distributed processing environments. This work focuses on an increasingly important target machine class: shared memory MIMD configurations, in which a program consists of a task force rather than one monolithic single instruction stream task. Other research efforts in generating parallel programs for MIMD machines have dealt with parallelizing sequential FORTRAN programs. In this work, a very high level language for problem description (PS) is defined. Use of such a language enables domain experts (as opposed to programmers) to produce parallel computer programs. The study of parallelism in programs has become an important challenge for the affective use of multiple instruction stream computers. This effort will add to the understanding of the topic.